Regulation of Flagellar Gene Transcription in Chlamydomonas Reinhardtii

Abstract Keller 9316552 To identify the DNA sequences that coordinate flagellar gene expression, the genes for @ 1 tubulin and RSP 3, another flagellar protein, have been modified for identification, deleted to retain varying lengths of 5' and 3' flanking regions and intervening sequences, and introduced into Chlamydomonas cells. Expression of the modified genes is being analyzed in control and stimulated cells. An element regulating expression of the @ 1 tubulin gene has been located by correlating loss of inducibility with specific deletions, and the function of this and other putative regulatory elements will be correlated with specific responses to stimulation. This characterization of possibly multiple DNA control elements regulating Chlamydomonas flagellar gene expression will add to our general understanding of coordinate gene expression and organelle biogenesis. *** In eukaryotes, mechanisms that coordinately regulate expression of functionally related but structurally distinct genes are largely unknown. The Chlamydomonas flagellar regeneration system is ideal for studying coordinate gene induction. Stimulation of cells causes detachment of Chlamydomonas flagella, and rapidly and transiently induces transcription of tubulin and other flagellar genes 10-20 fold above basal levels of expression. Our previous work suggests that flagellar gene expression is regulated by Ca2+ -controlled events associated with flagellar regeneration - cellular stimulation, flagellar excision, and flagellar regrowth. To determine if the flagellar genes are coordinately induced by each of these events, we will measure mRNA abundance changes of an expanded set of flagellar genes after stimulation in conditions that uncouple the normal program of events. Results of these studies will indicate whether the flagellar genes are coordinately induced through similar or distinct control mechanisms. %%%